MRPG: Determining the Topchemical Effects of Enzyme Pre-treatment on Delignification in Conventional Kraft Pulping

0003984 Jacobs-Young This proposal was submitted under the guidelines for Research Planning Grants and Career Advancement Awards for Minority Scientists and Engineers, NSF 94-147 and is more specifically in response to the Minority Research Planning Grants (MRPG) opportunities of this announcement. The objective of this research is to study the effect of enzyme pretreatment of wood chips in the Kraft pulping process as a means of reducing pulp mill emissions and effluents. Previous work has shown enzyme pretreatment of wood pulp to be effective and has looked at the role of chip thickness, specie and enzyme combinations. The current work will be focused on the topological effects of enzyme pretreatment on delignification in Kraft pulping. This planning grant will afford the PI the opportunity to obtain preliminary results on which to base a full research proposal. ***